Doctoral Dissertation Research: A Multi-Level, Integrated Theory of Values: Measuring Values with the Factorial Survey Method

Abstract

SES 0000296
PI: Lynn Smith-Lovin, Mark Konty

This project attempts to measure cultural values using the Rossi-Jasso factorial vignette method. If successful, this will constitute one of the first methodologically sound measures of values. The second stage of the project uses the values ascertained in the first stage to predict behavior in a situation of potential helping of a stranger. This stage will be useful in assessing the importance of value measurement: do values actually predict anything about action? This project has the potential to contribute to empirical methods, as well as providing some tests of theoretical links between values and behavior.